Optimizing the STEM Teacher Recruitment, Development and Retention Pathway: Aligning STEM and Teaching Identities

The Noyce Track 1 project aims to serve the national need of recruiting, preparing, and retaining high-quality teachers in science, technology, engineering, and mathematics (STEM) fields. This project will support 30 prospective mathematics and science teachers by providing scholarships, early teaching experiences, mentoring, and teacher preparation. The project components will enable high-achieving prospective teachers to become effective secondary mathematics and science teachers who can prepare students for STEM careers.

The project at California State University San Marcos includes partnerships with three community colleges (MiraCosta, Palomar, and San Diego Mesa) and two high-need school districts (Escondido Union High School District and San Marcos Unified School District). Project goals include (1) recruiting and retaining 30 new undergraduate and post-baccalaureate students in mathematics, biology, physics, chemistry, computer science, and engineering for teaching careers over five years; (2) creating broad opportunities for all eligible students interested in STEM teaching without preferencing or excluding individuals or groups; (3) expanding and sustaining recruitment and retention mechanisms from first-year undergraduate study through teacher induction; and (4) expanding and sustaining the STEM education community in the region. The project’s intellectual merit includes a refined model for enhancing cross-disciplinary and cross-college faculty collaboration to recruit and prepare high-quality STEM teachers, as well as a deeper understanding of how students balance their STEM and teaching identities. The broader impacts of this project include addressing the STEM teacher shortage, strengthening the domestic STEM teacher workforce, and enhancing STEM learning for all students. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation questions: (a) To what extent have project strategies been implemented to meet the goals? (b) What has worked, and what lessons have been learned? (c) What factors influence the sustainability of partnerships and recruitment and retention mechanisms? The results of this project will be disseminated to help enhance the field. Notably, the models for faculty collaboration and partnerships with community colleges and school districts to support STEM teacher recruitment and retention can offer insights for other institutions. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.